Systematic Means for Controlling Molecular Dynamics

Professor Herschel Rabitz is supported by a grant under the Optical Science and Engineering initiative in the Theoretical and Computational Chemistry Program to perform theoretical studies of laser techniques for controlling molecular dynamics. The research will emphasize: 1) the establishment of bounds of possible control over molecular systems; 2) the determination of the essential features of laser pulses for achieving practical control; 3) the development of advanced laser field design techniques for molecular control; and 4) a full exploration of the role of adaptive laboratory feedback as a means of overcoming inherent design uncertainties and laboratory errors. Although the research is theoretical in nature, it will be closely coordinated with parallel laboratory efforts at Princeton and elsewhere. The outcome of this research is expected to lay the broad foundations for performing optically controlled molecular manipulations, as well as opening up a new means to probe the complex physical processes occurring during molecular dynamics. Since the invention of the laser chemists have dreamed of selectively exciting regions within a molecule thus causing a controlled chemical reaction to occur. It was long ago realized, however, that intramolecular vibrational energy redistribution occurrs so rapidly that it is impossible to concentrate enough energy in a selected bond to cause it to break. Now, with the advent of laser pulse modulation techniques, and the application of control theory, it appears that the dream of laser selective chemistry may become a reality.